Prosody and Function Morphemes in Early Language Acquisition

9411185 Gerken ABSTRACT This research examines infants' and children's sensitivity to two potential cues for early language acquisition: prosody and function morphemes. Prosodic changes such as pausing, pitch resetting and syllable lengthening potentially cue the locations of linguistically relevant units. Function morphemes such as articles and verb inflections occur in grammatically specified contexts (e.g.,"the" occurs only in NPs) and potentially allow learners to distinguish among phrase types. One set of proposed experiments examines the effects of prosody and function morphemes on 2-year-olds' sentence comprehension. Another set uses sentence imitation with 2-year-olds and preferential listening with 9-month-olds to examine syntactic and discourse factors that might influence learners' sensitivity to phonological phrases-prosodic units that appear to govern some aspects of prosody in adult speakers. ***